Model Studies of Iron/Sulphur Clusters in the Gas Phase (Chemistry)

This research will use Nd-YAG laser vaporization of solid FeS rods to generate Fe/S clusters. Time-of-flight mass spectroscopy techniques will then be used to detect mass distributions and intensities of ionized clusters, produced directly from the pulsed nozzle source. Patterns favoring stable species, especially those found in Fe/S proteins (Fe2S2,Fe4S4, etc.), will be noted. Mass selected ion photofragmentation techniques will then be used to identify the primary dissociation products and branching ratios of the Fe/S clusters. If time allows these techniques will be extended to study the interactions of Fe/S clusters with small cysteinyl like ligands. Interactive activities include teaching a graduate level cluster chemistry course, and organizing and directing a symposium on metal clusters involving outstanding women chemists in this area of research. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.